STTR Phase I: Smart Imaging for Intelligent and Efficient Aquaculture

The broader impact of this Small Business Technology Transfer (STTR) Phase I project technology benefits scientists by enabling the observation and monitoring of fragile submerged domains with high quality visual data.

This Small Business Technology Transfer (STTR) Phase I project aims to develop an intelligent, image-based AI solution. Existing imaging solutions fail to deliver high-resolution, low-latency, and clear imagery. This project will develop an intelligent imaging platform capable of streaming high-quality, real-time data from non-traditional locations and providing on-chip data analytics. In particular, this project has three research thrusts: 1) design and build a computational imaging system for monitoring; 2) develop image and video processing algorithms to enhance and analyze imagery data in order to extract critical information for downstream applications; and 3) develop use-inspired applications to facilitate and ultimately automate the operation of aquaculture facilities, including growth rates estimation and health condition analysis. This project will deliver an integrated system with a software suite specifically optimized for need-customized imaging hardware, capable of providing critical information for essential operations.